NANOSCALE: Shape Control in Nanoscale Crystallization Processes

Abstract
CTS-9986545
D. Kaplan, Tufts University

The goal of this research is to use principles of biomimetics to control the shape,
chirality and morphology of nanoscale inorganic crystals. Reactions will be carried out
in confined geometries (thin films or reverse micelles), taking advantage of template
chemistry, organized water layers, and chirality of the template. Peptides specific for
inhibiting crystal growth at surfaces will be selected via combinatorial methods and used
in the experiments to assess their ability to modulate control of crystal shape. Calcium
carbonate and sodium chlorate will be used as the model salt systems. These experimental
strategies will help us begin to mimic biomineralization processes, natural processes that
are adept at precise control of nanoscale inorganic crystallization processes; systems
useful to emulate in vitro. Well-defined monolayers will be formed with amino
acid-terminated surfactants in which head group chemistry, based on the specific amino
acid, and chirality, through the use of L- or D-amino acids, can be controlled. The
surfactants will be used in reverse micellar and thin film formats as confined geometries.
The chiral organic surfactant head groups will be used to understand the relationship
between chirality and inorganic crystal morphology. Phage display will be used for
combinatorial selection of peptides as specific inhibitors of crystal surfaces. The
outcome of the studies will be new options to modulate crystal shape through combinations
of template chemistry, template chirality, crystallization in confined geometries and the
presence of selective inhibitory peptides. The unique combination of experimental tools
that we plan to use will provide new insight into fundamental processes of nanoparticle
crystallization and lead to a better understanding of how to control the shape of these
nanoscale sized inorganic crystals. Shape and morphology control of crystallization
processes are significant for a wide range of electronics, optics and pharmaceutical
applications.